Electrodeposited Ceramic Superlattices

The proposed research consists of three concurrent thrusts: (1) the electrodeposition of new ceramic superlattices, such as those of PbSnO, PbBiO, TlSnO, and PbAgO; (2) a study of the optical properties of nanomodulated materials, which has bearings on the effects of quantum confinement and the tunable IR reflectivity; and (3) a scanning probe microscopy study of epitaxial growth of the nanomodulated superlattices. The STM/AFM will also be used to study the feasibility of depositing single crystal superlattices. %%%% This project pursues the new and interesting results of electrodeposition of ceramic superlattices to more oxide systems. It will also investigate their optical properties. It will also study the epitaxial growth of these superlattice with the use of scanning probe microscopy . The feasibility of depositing single crystal superlattices will be explored as well. Based on the encouraging preliminary results, these superlattices have shown lattice perfection qualities comparable to those of MBE products. This method could have the possibility of becoming a very important industrial process. This study will provide important and fundamental scientific and technical information about the electrodeposition process.